CRI: Interfaces for the Embodied Mind

This project, exploring the concept and human-computer interaction (HCI) implications of the embodied mind, builds a comprehensive environment for HCI that includes vision/graphics/large displays, sound capture, textile, and haptics. The infrastructure aims at servicing 14 projects in five areas of research:

-Embodiment Awareness and Aware Spaces
-Expansive High-Resolution Visual Displays
-Situated Interfaces in Varying Attention Settings
-Augmentation of Interactive Spaces with Aware Devices and Interfaces
-Embodied Human Communicative Behavior

The research elements are combined in three integrative exemplar application domains:

-Interaction around geographical information in collaborative situation rooms,
-Aware classrooms, and
-Embodiment awareness technologies to assist Aging in place.

Broader Impact: Specific applications, such as aware classroom and aware homes for aging convey technological benefits that in turn might benefit society. Furthermore, the collaboration with minority and undergraduate-serving institutions (Norfolk State and Hollins U), the integration of the project goals with teaching, and the general knowledge dissemination, form a worthwhile outreach program.